DISSERTATION RESEARCH: Function and Semantic Content of Alarm Calls

Seyfarth 9520566 Abstract Alarm calls are vocal signals given by animals when they detect predators. Alarm calls are potentially costly, because they may attract predators. The questions of how such signals function, and how they evolve, are intriguing. Alarm calls given by nonhuman primates are of particular interest because they provide clear evidence of semantic communication outside of human language. This research has three objectives. The first is to examine the current function of alarm calls, and to elucidate their evolution. The second is to examine the semantic content of alarm calls, and the third is to determine what callers know about the predator-prey relations that exist among sympatric species. Studies will focus on red colobus monkeys, whose vocal and behavioral responses to tape playback of noises from potential predators and other prey species will be monitored in their natural environment. The results will increase our understanding of animal communication and insight into the evolution of semantic communication.